Conference: The 2024 Joint Research Conference on Statistics in Quality, Industry, and Technology (JRC 2024) - Data Science and Statistics for Industrial Innovation

This project funds U.S. based student participation in the 2024 Joint Research Conference on Statistics in Quality, Industry and Technology (JRC 2024), which will be held in Waterloo, Ontario, Canada, from June 17-20, 2024, at the University of Waterloo. The organization of this
conference is also in partnership with Virginia Tech. JRC 2024 is a joint meeting of the 29th Spring Research Conference on Statistics
in Industry and Technology (SRC) and the 40th Quality and Productivity Research Conference (QPRC), which happens once every four years.
The theme of JRC 2024 is "Data Science and Statistics for Industrial Innovation." JRC 2024 aims to bring together researchers and
practitioners worldwide who use statistics in quality, technology, and industrial contexts. The conference promotes communication
among researchers and practitioners to enable and ensure the development and widespread use of novel insights and methodology.
JRC 2024 has the potential to benefit society by offering participants the opportunities to gain knowledge and reshape their
perspectives on topics associated with data science, statistics, and machine learning. JRC 2024 will advocate for the ethical
application and understanding of data science, statistics, and machine learning for industrial innovation, which is beneficial for
the long-term competitiveness of the U.S. industry. The conference provides a platform to disseminate knowledge to the broader
community by sharing short course lecture notes, presentation slides, and posters on the conference website. JRC 2024 aims to broaden
the participation of underrepresented groups (i.e., women, racial/ethnic minorities, etc.) in STEM disciplines.

JRC 2024 focuses on recent advancements in methodology, best practices, and innovative applications. Participation in JRC 2024 has the
potential to advance knowledge and understanding of topics related to data science, statistics, and machine learning and how they can
be relevant to industrial innovation. This conference traditionally attracts prominent statisticians, data scientists, quantitative
analysts, and others with an established record of highly influential, methodological, and interdisciplinary research. These individuals
will have the opportunity to discuss the current progress made in statistics and machine learning, such as big data technology,
text modeling, the use of generative artificial intelligence in industrial innovation, and exchange novel ideas and experiences in
working with modern data science to discover knowledge and apply it to numerous fields. JRC 2024 has the potential to disseminate
new methods and data-driven approaches, the evaluation of previous findings, and the validation of theoretical approaches,
stimulate further investigations regarding the benefits of working with statistics and machine learning methods for industry and
increase the awareness of the need to use data science approach in industry. The conference will include three plenary presentations,
18 invited paper sessions, four to six contributed sessions, a poster session, a technical tour, and a one-day short course.
More details on the conference can be found on its web page:
https://uwaterloo.ca/joint-research-conference-statistics-quality-industry-technology/